The Magnetization of Young Ocean Crust: A High Resolution Study of the East Pacific Rise at 13 degrees N

This work will characterize the variation of magnetization of near-axis crustal rocks obtained by dredge and rock drill from the East Pacific Rise at 13 degrees north. In addition to the rock magnetic studies of the returned samples, magnetometer and gravity data collected over the sample sites will be analyzed. The combination of the rock magnetic data from the samples, with the sea surface magnetic and gravity data, and the further integration with the funded geochemical analyses, will allow the identification of sources of variation in near-axis crustal magnetization.